Data Acquisition System for New Structures Lab

The Department of Civil and Environmental Engineering (CEE) at the University of Central Florida (UCF) has recently constructed a new large-scale structural testing facility. The new lab will allow Structures and Geotechnical engineering faculty members and students to conduct static, fatigue, ad pseudo-dynamic tests on large-scale structural components and subassemblies. This award will enable CEE/UCF to purchase a 128-channel data acquisition system to supplement structural testing equipment that has already been acquired. The data acquisition system will be used to collect measurements of strains, displacements, forces, and temperature in the tests that will be conducted in the new facility.